ROLE: Understanding the Impact of Handheld Computing Devices on Science

Drawing on the experience of the Center for Learning Technologies in Urban Schools, especially through its work in Detroit's middle schools over the past five years, a cornerstone experiment is proposed. A classroom-based study will examine the use of palm-sized computers, in comparison to pencil-and-paper, in supporting students carrying out two key science learning activities - concept mapping and explaining. While there are good reasons to believe that these learning activities, uniquely supported by the palm-sized computers, may well lead to student achievement gains and improved attitudes toward science, the data from this study will be most revealing. The proposed experimental study, then, should help researchers and practitioners of the educational community develop a deeper understanding of the educational costs and benefits of the emerging handheld technologies.